NSF/Alfred P. Sloan Foundation Postdoctoral Research Fellowship in Molecular Evolution for FY 1997

Abstract DBI 9750015 Daniel Oppenheimer This action funds an NSF/Alfred P. Sloan Postdoctoral Research Fellowship in Molecular Evolution for 1997. These fellowships support studies involving the theoretical, comparative, computational, and/or experimental analyses of biological patterns and processes at the molecular level within the framework of organismic evolutionary change and adaptation. These studies also include the use of molecular data to address broader evolutionary questions. Each fellowship supports a research and training plan to be carried out in a sponsoring laboratory. The research and training plan for this fellowship is entitled "Using baculovirus vectors to study the evolution of segmentation in arthropods." Although expression patterns of many developmental genes in a wide range of arthropods are known, the functions of these genes are not known. This research uses baculoviruses which infect a broad range of arthropods to control the expression of specific developmental genes in many insect and crustacean species. Evolutionary relationships of gene function will be made by comparing effects of gene misexpression in different species.